Mathematical Sciences: K-Theory, C*-Algebras and Index Theory of Elliptic Operators

Professor Kaminker will investigate a number of problems: (i) the use of operator algebras and cyclic cohomology in the index theory of elliptic operators, (ii) the leafwise Toeplitz extension on a foliated manifold, (iii) the theory of higher eta invariants which will be applied to obtain information about algebraic K- theory, (iv) cyclic cohomology and elliptic boundary value problems, and (v) secondary invariants for commuting n-tuples of operators. These problems all involve Hilbert space operators and their relation to the geometric properties of manifolds, the higher dimensional analogues of surfaces. Elliptic operators play a large role in this work. Such operators occur in many of the partial differential equations of applied mathematics and physics.